QEM/TPC Information and Technical Assistance Workshop to be Held in Washington, DC, May 6, 2005

The authors propose a conference offering technical assistance to new performers responding to the Teacher Professional Continuum Solicitation for FY06. The workshop will be held in Washington, DC on May 6, 2005. Invitations will be sent to fifty participants from minority-serving institutions. The goal is to increase participants' awareness of the overall TPC program and of the opportunities for support that the TPC program offers.

Each institution will identify two faculty participants: one from the education faculty, and another from the institution's STEM departments. The workshop will include presentations by TPC program officers, award recipients and QEM consultants. Participants will be required to submit a one-page project summary for a TPC preliminary proposal prior to the workshop.